Applications of Fourier analysis to convex geometry

Abstract:

The PI plans to study the geometry of convex bodies using
methods of harmonic and functional analysis. One direction
is to express different properties of convex bodies in terms
of the Fourier transform and then use methods of Fourier
analysis to solve geometric problems. This approach will lead
to new results on sections and projections of convex bodies,
characterizations of different classes of bodies, new results
of the Busemann-Petty type. Another direction of research is
related to a new connection between convex geometry and the
theory of L_p-spaces, which has recently been found by the PI
and allows to get new geometric results by extending different
facts about L_p-spaces to negative values of p. Particularly
interesting is the question of whether intersection and polar
projection bodies are isomorphically equivalent. A solution to
this problem will represent a big step in understanding the
duality between sections and projections, which remains one
of the most intriguing mysteries of convex geometry. The PI
also plans to apply these methods to several open problems of
asymptotic geometric analysis, including the central limit
problem for convex bodies.

The study of geometric properties of convex bodies based on
information about sections and projections of these bodies has
important applications to many areas of mathematics and science,
from the classical theory of x-rays and geometric tomography to
different problems of engineering and medicine. A new approach to
sections and projections of convex bodies, based on methods of
Fourier analysis, has recently been developed by the PI. This
approach has already led to several results, including a Fourier
analytic solution of the Busemann-Petty problem on sections of
convex bodies asking whether bodies with uniformly smaller central
sections necessarily have smaller volume. The proposed research
will lead to better understanding of the geometry of convex bodies
and will further relate methods and results of convex geometry to
harmonic analysis, functional analysis and probability. New techniques
for computing the Fourier transform, developed in this project, will
have independent value and can be applied to signal processing and
statistics.